An Investigation of the Initiation and Growth Mechanisms of Filamentous Coke over Iron, Nickel, Cobalt, and their Alloys

In this investigation, a comprehensive study will be conducted of iron, nickel, cobalt and certain of their alloys with a range of mixtures of carbon dioxide, carbon monoxide, methane, hydrogen and water vapor. The metals studied are of real interest as results can be expected to apply to a variety of practical materials from structural to stainless steels. The gases chosen for this investigation are also of real interest because they include the reactants of so many significant processes. The analytical methods to be used will give a comprehensive view of the detailed mechanisms involved. The combination of instruments to be employed will serve to give confirmations and possible new insights for the surface chemistry of these systems. Experiments will be performed at different temperatures to give a more complete understanding of the initiation and growth mechanisms of carbon filament growth.